Cross-National Measurement of Earthquakes and Other Natural Disasters - Final Phase

This award provides funding for the final analysis of data collected under NSF Grant CES-8308744 and its amendments. Under this grant, over 1700 interviews were conducted with samples of households in comparable cities in six countries including U.S.A.-California, Peru, Mexico, Italy, Yugoslavia, and Turkey, for purposes of developing and testing a cross-culturally valid method for measuring disaster impact on household living conditions. Data on the cost of housing and household equipment and furnishings was also collected along with detailed inventories of community infrastructure. This work was extended to conduct data collection in Mexico City after the 1985 earthquake to test the methods of assessing damage under real disaster conditions. A monograph will be published which will present the measurement technique in a manner that it can be employed by other scholars wishing to measure household level damage and loss or to measure progress toward the restoration of household level living conditions following a disaster.